Mathematical Sciences: NSF Postdoctoral Research Fellowship Programs

This is a cooperative agreement between the Division of Mathematical Sciences and the American Mathematical Society for the purpose of producing rank ordered lists of qualified applicants for the NSF Postdoctral Fellowships in the mathematical sciences. The American Mathematical Society will receive and organize the applications, convene a panel of distinguished mathematicians representing the American Mathematical Society, the Society for Industrial and Applied Mathematics, and the Institute of Mathematical Statistics, evaluate the applications and recommend a rank ordering of applicants to the Division of Mathematical Sciences of NSF. The American Mathematical Society is a nonprofit organization dedicated to the support of mathematical research and scholarship. It is critical to that Society and to NSF that there be a continuing influx of young mathematicians possessing the advanced training and talent needed to keep the profession strong. NSF's Postdoctral Research Fellowship program helps provide this manpower and serves to focus attention on this need throughout the broad mathematical community.